Development of an IT intensive Manufacturing Engineering Curriculum

PROPOSAL NO.: 0230709
PRINCIPAL INVESTIGATOR: Cecil, Joe
INSTITUTION NAME: New Mexico State University
TITLE: Development of an IT intensive Manufacturing Engineering Curriculum

ABSTRACT

With the phenomenal explosion of e-businesses and the continuing adoption of the
Virtual Enterprise (VE) model in manufacturing, there is a substantial interest in
American industry in the availability of engineering students who possesses skills to
succeed in this new Information Technology (IT) intensive manufacturing work
environment. In this context, there is a need for our educational institutions to develop
innovative curriculum, which will enable our students to .hit the ground running. when
they begin working in their respective organizations upon graduation. Our manufacturing
industry needs a new type of engineer, who must not only possess a strong background in
manufacturing (and manufacturing systems) but also be skilled at using emerging
technologies such as Virtual Reality, the Internet and other tools to accomplish a wide
range of activities in the context of virtual manufacturing enterprises.

This project will develop comprehensive plans for the design and development of a new manufacturing engineering curriculum, which addresses the changing manufacturing landscape. Such an information technology based manufacturing curriculum will benefit graduating students and industrial organizations (who hire them) by providing a workforce, which possesses skills and knowledge that are necessary to succeed in today's evolving global economy. Other activities proposed include the incorporation of virtual reality technology to enhance student learning for under-represented minorities including students with physical challenges. The project team includes New Mexico State university and other academic and industry partners.